THE DANCE OF CHANCE ... Growing Order Out of Randomness

9353490 Stanley This exhibit will integrate graphics, artifacts, highly interactive electro-mechanical demonstration devices together with state of the art interactive educational computer technology to demonstrate how probability shapes nature. It will draw its examples from a variety of scientific fields including physics, chemistry, earth sciences, and biology. It is planned as a permanent addition to the Museum's exhibition program, but will be designed to facilitate easy reproduction for individual copies or for circulation as a travelling exhibit. Millions of visitors--families, teachers, children form diverse communities--will gain a first hand aesthetic appreciation of the pattern finding process of scientific investigation as well as a better understanding of the usefulness of mathematics in explaining how the natural world works. ***